Dissertation Research: Geochronology of Plio-Pleistocene Hominid Sites in Northern Tanzania

This is a systematic geochronological study of Olduvai Gorge, Lake Natron, and Laetoli, three hominid bearing geological sites in northern Tanzania. The purpose is to combine several types of data (stratigraphy, mineralogy, geochemistry, trace elements and isotopes) which, together with existing geochronological data, will refine the chronology of these important anthropological sites. The study will add new age determinations using a relatively new technique, 40Ar/39Ar single-grain laser fusion dating, and will correlate the stratigraphic horizons at the three localities. Previous geological results suggest correlations among these sites, but do not provide firm chronological correlations. It is important for understanding human fossil history to know the geological dates of these sites and exactly how they are related temporarily to each other. This study should help provide the needed firm correlations.